Conductive Polymer Electrolytes: Phase Separation and Ion Transport

Promislow
0708804

The investigator analyses the mathematical underpinnings of a
novel Conductive Polymer Electrolyte (CPE) model for phase
separation and ion transport in polymer electrolyte solutions.
An exothermic acid-solvent reaction leads to an interfacial
energy that decreases with increasing surface area but grows with
the curvature of the interface. The family of gradient flows
associated to the interfacial energy are compelling fourth and
sixth order extensions of the familiar Allen-Cahn and
Cahn-Hilliard operators with rich new structure. The
investigator rigorously derives sharp interface limits for the
gradient flows associated with pore formation. The exclusion
potential that separates the protonic defects from the anions
generates a novel equilibrium charge distribution within the
phase separated membrane, modifying the classic Gouy-Chapmann
diffusive double layer. A multiscale analysis of the elliptic
equations governing the charge distribution quantifies the impact
of the exclusion potential on the structure of the electrostatic
double layer, and the impact of the electrostatic pressure upon
the phase separation. The solvent pore network within the
polymer electrolyte is a novel high-contrast conductive composite
media. For local minimizers of the phase separation arising from
interfacial and electrostatic energies, the investigator exploits
the high contrast afforded by the permittivity and exclusion
potential to derive the effective conductivity of polymer
network. This entails asymptotic analysis of the saddle point
structure of charge distribution at channel junctions and
development of a variational characterization of the effective
protonic conductivity.

Polymer electrolytes are comprised of long hydrophobic polymers
(essentially Teflon) with short acidic side-chains attached, like
a single pole ladder. They form a rich structure that phase
separates in the presence of water, forming intricate nanoscale
geometries lined with pendant acid groups and filled with charged
fluid. Such structures are the workhorses of ion transport,
generating the selectivity of ion channels in cell membranes, the
complex biochemical processes that occur within the pores of
lipid membranes, and the motivation of this project: the
transport of charge within polymer electrolyte membranes of fuel
cells. This project analyzes the mathematical underpinnings of a
novel Conductive Polymer Electrolyte (CPE) model for phase
separation and ion transport in polymer electrolyte solutions.
The fundamental understanding of pore formation and ion
conduction in these materials is essential to the development of
high-temperature membranes for fuel cell vehicles. High
temperature membranes are a key step in the transition to a
hydrogen economy, as higher fuel cell operating temperatures will
greatly reduce costs associated with platinum catalyst loading
and radiative cooling of the engine.